Particle Flux in the Central Subarctic Pacific

It is proposed to investigate seasonal fluxes of particulate matter in the subarctic Pacific where primary productivity is relatively high and particle flux appears to be correspondingly high. The amplitude of seasonal material flux is expected to be large due to significant changes in water column stability throughout the seasons. The high flux values in this region, apparently related to characteristics of the ecosystems including abyssal circulation, are important in material cycles of the world's oceans. This study will involve collaboration with Japanese colleagues since they have useful hydrographic, nutrient, biological, and other relevant data from the subarctic Pacific accumulated over the last several decades as well as new data from their ongoing research programs. The logistics of shiptime provided by Japanese scientists will enable both parties to conduct a long-term, joint sediment trap program. Two single trap mooring systems will be deployed during the summer, 1988, one at subarctic Station SA-1 (49.5'N, 175'W) and the other at Aleutian Basin Station (AB; 53.5N', 177'W) in the Bering Sea. Seasonal trap samples from these two stations will be recovered in summer, 1989. Laboratory analyses of the time-series samples include organic C, N, H, P. CaCO3, opal, lithogenic matter, and an initial listing of planktonic components. These data will be related to in-situ hydrographic, nutrient, and biological data as well as to satellite-derived temperature and chlorophyll data for synthesis.